Analysis of Existing Geophysical Data from Taylor Dome for Ice Core Interpretation and Relation to the Dry Valleys Geomorphological Climate Record

This award is for support of a three year study to analyze geophysical data (airborne and ground based radio-echo profiles, surface ice motion and strain rate data, snow accumulation rate and surface temperature data) collected both on Taylor Dome and Taylor Glacier to aid in the paleo-climatic interpretation of the Taylor Dome ice core. The project will have three components: 1) Processing of data from the airborne radio-echo survey which was flown over Taylor Dome. This data will be combined with ground- based radar profiles and used along with the stratigraphy to infer mass balance and ice flow, using 2-D and 3-D ice flow models; 2) Refinement and improve-ment of thermomechanical model calculations (incorporating ice velocity, strain data, surface accumulation rate data and ice core data) to allow a better dating of the deep ice core; and 3) Analy-sis of all data sets in order to compare the ice core paleoclimate record with the radiocarbon-dated Dry Valleys record of paleoclimate. No new field work is involved in this project.